EAGER: Predictive Front-Running of U.S. Research Trajectories

The openness of the U.S. research enterprise accelerates discovery by enabling scientists to share preprints, computer code, and data rapidly. At the same time, these disclosures create a publicly accessible record of where U.S. research is headed. Recent advances in artificial intelligence (AI), including large language models, make it possible to analyze this record at scale and may enable outsiders to forecast specific research outputs months in advance. A foreign competitor using these tools could anticipate or preempt U.S. discoveries without relying on personal or institutional relationships that current research security systems are designed to detect. However, no systematic evaluation has established the magnitude of this risk or identified which fields are most exposed. This project develops the first systematic measure of what the investigators term AI-mediated appropriability risk: the extent to which a field’s open scientific record, combined with frontier AI capabilities, allows outsiders to predict and potentially preempt its near-term results. The project serves the national interest by providing federal agencies, preprint platforms, and university research security offices with an empirical basis for decisions that protect the security and competitiveness of the U.S. research enterprise. It also trains graduate students in research security methods, addressing a documented national workforce need.

The project addresses three connected research questions. First, how much earlier can AI-based forecasting identify a field’s near-term research outputs as compared to an expert human analyst? The research team develops a measurement instrument that compares forecasts from large language models with those from panels of domain experts and analysts using conventional open-source intelligence methods, yielding estimates of AI's lead-time advantage in months. Second, they analyze which features of a field’s disclosure practices predict the lead-time advantage. The team applies the instrument across approximately 10 U.S. research fields, including semiconductor, quantum information science, and biotechnology domains prioritized by the CHIPS and Science Act. Using 30 years of open publication records from 1995 through 2025, the team tests whether preprint adoption, abstract detail, and norms governing code and data release explain cross-field variation in measured risk. Third, they analyze how AI capabilities change researchers’ disclosure behavior. The team analyzes archival publication data around the release dates of major AI models to identify shifts in disclosure behavior. Project deliverables include a validated measurement instrument, field-level risk estimates expressed in policy-relevant units, and evidence on researchers’ disclosure responses. Together, these outputs will extend theories of knowledge appropriability and scientific disclosure to the era of machine-assisted science.